Extension Types of Infinite Symmetric Products

Proposal: DMS-0072356
PI: Jerzy Dydak

The principal investigator plans to work on
a general theory of dimension called
the extension dimension. In this theory, dim(X) is not a natural number.
Instead, dim(X) is a CW complex and dim(X) being at most K
means that K is an absolute extensor of X. In particular,
dim(X) being at most the n-sphere is equivalent to the covering dimension
of X being at most n. dim(X)=K means that K
is minimal with respect to all L such that dim(X) is at most L.
It turns out that infinite symmetric products play a crucial role
in the whole theory. Their properties lead to a natural algebra
with self-duality. That self-duality is an algebraic manifestation
of the geometric duality between compact spaces and CW complexes.
All infinite symmetric products equivalent to compact
or finite-dimensional CW complexes are classified.

In classical dimension theory one tries to attach
a natural number n (or infinity) to every space.
It turns out that the natural number n is simply a substitute
for the n-sphere and saying that dim(X) is at most n reflects
a certain relationship between the space X and the n-sphere.
One can generalize the notion of dimension by considering
the same relationship between the space X and a polyhedron K
and that is stated as "dimension of X is at most K". For example, one can
investigate if the dimension of X is at most the projective plane.
It turns out that the dimension theory constructed that way
is much closely connected to the mainstream of topology.
In particular, one gets links to homological algebra
and algebraic topology. One of the most interesting aspects of
that theory is duality, a fundamental idea in the whole of
mathematics. At the simplest level it means that not only
are we trying to attach dimension (a polyhedron) to a space,
but also we attach a space to a dimension.